Southern Illinois University High Performance Network Connections for Science and Engineering Research

The proposal plans to connect SIUC to the Illinois Century Network, MREN, and then to the Abilene Network for research and education purposes: Soybean Genome Integration and Publication Project requiring real time instructional access to large remote data sets; Apoliptoprotein Structure Project requiring an advanced connection due to delay sensitive tranfer of NMR control information and its latency sensitivy vs. bandwidth requirements; and 3-D vizualization of Geological Structures